Ship Operations Support

9622783 ASKEW The Harbor Branch Oceanographic Institution will operate the research vessels SEWARD JOHNSON, EDWIN LINK and SEA DIVER in 1997. In addition they operate the submersible JOHNSON SEA-LINK and a Remotely Operated Vehicle (ROV). These systems are operated as effective research platforms for a variety of NSF-sponsored research projects. The SEWARD JOHNSON is a 204' general purpose research vessel with a schedule of 255 operational days in 1997 of which 179 days are in support of NSF-funded research. The ship will support cruises off Brazil, Barbados, s.Africa and Puerto Rico. The EDWIN LINK is a 168' general research vessel with a schedule of 218 operational days in 1997 of which 46 days are in support of NSF-funded research. The ship will support cruises for NSF off the Bahamas and the Atlantic coast of the US. The SEA DIVER is a 113' general research vessel with a schedule of 33 operational days in 1997. None are in support of NSF-funded research. ***